Large-scale Computations in Free-surface Hydrodynamics

This proposal is a collaborative research project, involving Ocean Engineers and Applied Mathematician, to develop computational methods for analyzing the interactions of water waves with floating vessels. Computational methods will be developed for problems ranging from linear wave interacting with practical structures to second-order, weakly- and fully nonlinear wave simulations with simpler body shapes. Parallel processing methods will also be pursued.